Mathematical Sciences: General Hypergeometric Functions in Representation Theory and Mathematical Physics

DMS-9501290 PI: Varchenko Varchenko will develop the theory of general hypergeometric theory with applications to the representation theory, conformal field theory, and statistical mechanics. In particular he will define conformal blocks in WZW model of conformal field theory as a special space of hypergeometric functions, describe the monodromy of conformal blocks, solve the quantized Knizhnik-Zamolodchikov equation in q-hypergeometric functions and describe algebraic structures of the space of its solutions. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.